Specimen Geometry and Size Effects on the Fracture of River and Lake Ice

The primary motivation for fracture research on ice is related to the prediction of maximum load-transmitting capability and the minimum load- bearing capacity of ice masses. This proplem is common to most engineering applications involving ice: i.e., loads on arctic structures, bridge piers, ships, and bearing capacity of ice islands, ice roads airstrips, etc. The specific objective of the proposed research is to investigate the effect of loading rate, testing temperature, and microstructure of fresh water ice on its fracture toughness. Preliminary to such studies, the effect of specimen size and shape will be established. Three types of ice that are common on many nortnern rivers and lakes during winter will be examined. The information obtained in this research will be extremely useful for the prediction of maximum load-carrying capacity of ice; and it will lead to the establishment of standardized fracture testing techniques for ice. The PI ie highly qualified to conduct the proposed research. An award is recommended.